Computations in Modular Functions

This investigation is a continuation of work on computations in the theory of modular functions of one and several variables. The principal investigator's recent work highlights several related areas in which the use of computers, particularly, the use of computer algebra systems has provided both clues and limitations to investigations in modular function theory. For modular functions of one variable there is a renewal of explicit computations of modular equations relating j (z) and j (nz). Computer algebra has been used to increase the range of values of n for which the computations can be carried out explicitly. The purpose of these computations is to study the singular moduli, where j (z) and j (nz) are numerically equal. Likewise for Hilbert modular functions, it is now possible to find modular equations. Here the singular moduli are more important, since they provide a clue to the manner in which ring class field theory extends beyond the rational base field. Indeed these modular equations determine a manifold which has to be treated by its ideal. The application of resultants to finding singular moduli is a practical computer algebra problem.